Magic Porthole: An Interactive, Educational Web-Mystery

Proposal Number: 0528303
Institution: Yale University Dept. of Biology
PI: Janine Selendy
Project Title: Magic Porthole: An Interactive, Educational Web-Mystery

This planning grant proposal would develop the logistical, programming and creative specifications for production of Magic Porthole, an innovative Web-based science game for 8-14 year olds. The content and learning will focus on the value and significance of intact coral ecosystems to human communities, encouraging young people to seek more sustainable relationships with their environment. The project will use existing video footage of coral reef life along with new live action footage, text, stills, music and flash animation. The 8-14 year olds will be engaged in a sustained mystery story that will pull them more deeply into scientific content. The organizational collaborators are environmental education and media organizations.